Auditory Performance In Tigers

Auditory performance in tigers, the biggest of the big cats, has not been documented in the scientific literature, although claims of extraordinary hearing attributes are legendary in anecdote. The purpose of this project is to examine the hearing and vocal capabilities of the tiger to lay the foundation for the development of acoustical tools for use in conservation. Is the tiger an auditory specialist, an animal that has evolved special hearing attributes that give it an advantage in the wild, or is it a generalist fitting predictably into its auditory niche? A non-invasive set of tools including sound elicited brain potentials will be used to evaluate hearing. Sound measurements in the infrasonic range (frequencies lower than those available to humans) will be used to determine if tigers are able to produce calls containing energy in this range. The working hypothesis is that tigers specialize in low frequency hearing to communicate over large distances. This project will set the stage for the development of 1) studies designed to more thoroughly understand the role of hearing and vocalization in the diverse communities inhabited by tigers, 2) acoustic census protocols designed to more effectively account for free-ranging tiger populations, and 3) acoustic tools designed to deter tigers from encroaching on human habitats, thereby reducing poaching. The tiger is regarded as a flagship species representing the critical need for the conservation of wide-ranging ecosystems including the coniferous, mixed-deciduous forests of southeastern Russia and the thick tropical rainforest of Sumatra. When combined with a comprehensive outreach and educational program designed to impact the public and students at all levels, this project will call attention to the plight of the tiger. Consequently, a major educational goal is to use the high profile nature of the tiger to leverage the conservation of ecosystems inhabited by these seriously threatened big cats.